CAREER: Synthesizing Structural Uncertainty of Sea-level Rise Projections to Improve Application in Decision Making

Coastal populations and economic assets have grown steadily in recent decades. At the same time, coastal communities face increasing threats from sea level rise. Thus, there is a need for global and local sea level projections with quantified uncertainties. This research will synthesize existing sea level projection data. Machine learning techniques will help identify and improve sources of uncertainty. The project will develop an interactive dashboard that will serve as a central, online hub for projection databases. This tool will allow users immediate access to key projection data, visualizations, and statistical tools. By improving our understanding of projection uncertainty, this work will enhance our ability to develop adaptation and resilience strategies for coastal communities globally. Undergraduate students at Rowan University will help develop the databases and will share their work with public audiences. A children’s book written with educational experts will teach broad audiences about rising sea levels in an engaging and accessible format.

Despite decades of research, projections of future sea level remain deeply uncertain. Sources of uncertainty include scientific questions, like the amount and timing of melt from the Antarctic Ice Sheet, but also problem formulation, such as projection methodology and emissions scenarios considered. While the science behind projections is constantly improving, differences between the available projections can make it difficult for decision makers to interpret the science and evaluate community risks. By analyzing existing projections to better understand sources of structural uncertainty, we can reduce uncertainty introduced by problem formulation. The scientific goals of this project are to 1) further develop publicly-available databases that describe both local and global sea level projections, 2) use machine learning and statistical analyses to quantify how uncertainty manifests and evolves at various spatial and temporal scales, and 3) evaluate the sensitivity of projection methodologies to climate drivers.